CSR--AES: Creating a Robust Desktop Grid using Peer-to-Peer Services

The confluence of peer-to-peer and Grid computing has been described as
inevitable in several recent papers. Peer-to-peer (P2P) services show the
promise of providing robustness, reliability, and decentralization in many
areas, while Grid computing has shown great benefits for enabling
applications to take advantage of idle cycles available on machines all
across the Internet. In this project we are employing P2P services to both
allow users (peers) to submit jobs to be run in the system and to run jobs
submitted by other users on any resources available in the system. All
peers contribute resources to an ad-hoc resource pool, and all peers can
submit jobs that are executed using available resources, across
institutional boundaries. Using P2P services can provide a robust,
reliable, scalable job submission and execution system that is able to take
advantage of any computational resources that a set of users are willing to
share.

We focus on the crucial problem of completely distributed and decentralized
job placement in a Grid environment. We are working on distributed
algorithms for submitting jobs and efficiently matching them to available
resources. We use P2P techniques for both load balancing and for
resilience. From preliminary analysis and experiments, our schemes both
scale with system size and are robust against component failures and peer
departures/joins. The work is a collaborative effort between computer
scientists and astronomers. We are designing, implementing, and validating
the algorithms using a set of applications and associated workloads from
computational astronomy.